Automatic Verification of Finite-State Concurrent Systems in Hardware and Software

9803774 Model Checking is an automatic verification technique for finite state concurrent systems such as sequential circuit designs and communication protocols. By using special data structures like Binary Decision Diagrams, it is possible to verify properties of systems with extremely large numbers of reachable states. Although the technique is beginning to be used by companies like Intel, Motorola, and Siemens, additional research is needed to realize the full potential of the method. This project will develop a number of new techniques that should enable larger hardware systems and certain types of software systems such as security protocols and probabilistic programs to be verified. The new techniques involve extending the partial order reduction to permit symbolic model checking of real-time programs, combining model checking and theorem proving, using program slicing to reduce the state explosion problem in model checking, and combining abstraction with binary decision diagrams.***